Student Perspectives on Waste Management and Environmental Concerns

Local industry, government, and college personnel will work with the Haywood County Schools to develop curriculum materials and activities which will integrate local waste control and environmental issues into science and mathematics classes for grades 4-12. Teachers will be trained to use the materials through inservice programs, visits to industrial and municipal sites, and interaction with industry and governmental scientists and engineers. When the materials are put into use in the classes, students will also be involved in site visits, external activities, and research projects in addition to in-class use. The dual objectives are to teach the students about these real problems and to show them how mathematics and science knowledge are important in dealing with community and societal concerns. Cost sharing by the partners will total 28% of the NSF funding.